Technician Support: ICP-MS research in the W. M. Keck Foundation Laboratory for Environmental Biogeochemistry, Arizona State University. Phase I.

EAR-0520648
Anbar

This proposal will fund an ICP-MS technical specialist to support innovative research in the newly renovated and equipped W.M. Keck Foundation Laboratory for Environmental Biogeochemistry at Arizona State University (ASU). The goal of this laboratory is to promote research at the intersection of the geosciences, the life sciences and chemistry by capitalizing on recent advances in mass spectrometry. The new position will therefore support the development and application of novel analytical methods. A special focus of this position will be new types of isotopic analyses made possible by the development of multiple collector inductively coupled plasma mass spectrometry (MC-ICP-MS). Examples of planned work include: the use of Mo isotope measurements in ancient sediments to reconstruct changes in the amount of oxygen in the atmosphere and oceans; the measurement of Fe isotopes to better understand the environmental chemistry of this biologically essential element, and exploration of Cr isotopes to trace toxic pollutants. In addition to supporting specific research projects, this award will enhance the development of a vibrant new program in isotope biogeochemistry at ASU that brings together researchers in several departments, schools, centers and institutes spanning a number of disciplines. The award will make it possible for us to effectively fold our new instruments into integrative graduate and undergraduate training as part of this program. It will also enhance the ability of ASU faculty to mentor post-Ph.D., non-tenure-track staff scientists, several of whom are involved in the planned research efforts.